Second History of Programming Languages Conference-HOPL-II: Cambridge, Mass: April,1993

This conference is to be given by the Special Interest Group on Programming Languages of the Association for Computing Machinery (ACM SIGPLAN) to be held in Cambridge. Mass. in April l993. Its objective is to create a significant addendum to the definitive record of the history of programming languages which began in l978.